The Structure of the Crust and Lithosphere of the Antarctic Plate

9615139 Ritzwoller Abstract This award supports a study of the dispersion characteristics (group and phase velocity, amplitude, and polarization) of broadband (20 - 200 second) Rayleigh and Love waves propagating across Antarctica and the southern oceans and to invert these measurements for higher resolution (lateral: ~500 km) `tectonic scale' crustal and lithospheric models of the Antarctic Plate. For the most part this research will be built upon already existing methodological and data resources. In previous work, reliable frequency-time filtering methods were developed for measuring broad band surface wave dispersion on large data sets. These classical methods were applied systematically across Eurasia and are yielding high resolution images of the Eurasian crust and lithosphere. Second, there now exists a large, steadily growing, and easily accessible data base of seismograms following large magnitude high southern latitude earthquakes observed on broad band digital instruments that have been emplaced in Antarctica, on southern oceanic islands, and in southern South America, Africa and Australia (e.g., GDSN, IDA, IRIS/GSN, GTSN, GEOSCOPE, AGSO, POSEIDON, MEDNET, etc.). The application of these existing techniques to large volumes of high quality broad band data promises to yield significant new information about the crust and lithosphere underlying the Antarctic Plate. As a lead-in to this research, data were accumulated from IRIS's DMC and GEOSCOPE covering the years 1977 - mid-1995. A subset of these data (~500 events from 1990 to mid-1995) were analyzed to yield preliminary group velocity maps across the Antarctic Plate from 20 second to 150 second period. These preliminary maps provide new information about the following issues (among numerous others): (1) lithospheric extension and rifting in the West Antarctic, (2) the extent and nature of the East Antarctic Craton, and (3) the nature of the `anomalous' upper mantle underlying the Austra lian - Antarctic discordance. The new research supported by this award will extend these measurements to a much larger waveform data set in order to improve reliability and resolution. In addition, more accurate ray tracing methods will be developed and applied to optimize lateral resolution. The ultimate product will be a shear velocity model underlying the Antarctic Plate to a depth of about 150 km. Collaborations with Antarctic geoscientists active in the region will facilitate the interpretation of these models once they are constructed.